Jalalabad Fab Lab

Diary Note

SGER Abstract

0832234
Jalalabad Fab Lab
Neil Gershenfeld
MIT

June 9, 2008

Fab Labs are portable rapid prototyping facilities that can be deployed
worldwide to allow local manufacture of physical objects. Over the several
years that they have been in existence, they have been used for making RF
components in Norway, copier gears in India, and for education in the inner
city of Boston. A FabLab network has permitted the individual facilities to
share ideas and solutions.

A Fab Lab has been established in Jalalabad, Afghanistan, both as a base
for research and an experiment in itself in the impact of providing
modern means for invention rather than remotely-developed solutions to
local problems. The initial focus on applications in healthcare is targeting
some of the most immediate needs, which are currently constrained by the need
for long supply chains or large local inventories. As solutions are developed
and tested in the Jalalabad fab lab, they will be shared throughout the global
fab lab network. The connection with this network, along with access to
rapid-prototyping capabilities, is also expected to contribute to the regional
development of educational and economic activity.